Concurrent Processing Methods for Nonlinear Structural Dynamics

This very ambitious proposal received three VG reviews and one G. It is truly an interdisciplinary effort involving people involved in structural mechanics, computer science, and optimization, and cuts across four departments at the University of Colorado, Mechanical Engineering, Aerospace Engineering, Electrical Engineering, and Computer Science. The overall goal is to implement methods appropriate for parallel processing which are necessary to solve large structural mechanics problems, e.g., a projected space station. Even the lowest reviewer stated that "this is an interesting proposal". This is indeed an "interesting" proposal and deserves support, but not at the inflated amount originally requested. The realities of program funding make it necessary to fund this for only two years, and consideration of the current support of the faculty involved makes it necessary to eliminate them from the funding. As recommended by one of the reviewers, this means that the scope of the research will have to be cut back considerably, but it is still "an already complicated problem". One of the major aspects of this support is the inclusion of four graduate students in the work. This is an excellent opportunity for these students to be exposed to a significant amount of cross disciplinary effort during their education. The new budget was negotiated directly with the PI's, and approved by the university. I recommend funding as a standard grant for two years since the CSE/NT program is already heavily committed into the future, and further program funding prospects are uncertain. The two year funding levels will be: Year 1 - $ 138,548 Year 2 - 154,420 --------- $ 292,968